U.S.-Brazil: Influence of Pathogens and Insects in Regulating Weed Population

This U.S. - Brazil Cooperative Science Program award supports travel expenses and expendable research supplies and services related to the visits of Drs. R. Charudattan and D. Habeck, U of Florida, Gainesville, to Brazil . The purpose of the visits is to perform research on biocontrol of weeds occurring commonly in the U.S. and Brazil. Conventional weed control relies on chemical herbicides, which are costly and may cause damage to the environment. Biocontrol is an alternative, environmentally safe way of controlling weed and insect populations, which may result in large cost savings. The role of insects and pathogens of biological origin in controlling sicklepod, and purple and yellow nutsedge, three weeds that occur in agroecosystems, and waterhyacinth, Brazilian peppertree and melaleuca, three weeds that occur in aquatic ecosystems, will be researched. Since these weeds are widespread in both Brazil and the U.S., both sides will benefit from the collaboration.